Travel: New Statistical Physics of Living Matter: non-equilibrium states under adaptive control

This travel award supports the participation of junior and senior US researchers in the program “New statistical physics in living matter: non equilibrium states under adaptive control” that takes place July-December 2023 at the Isaac Newton Institute for Mathematical Sciences of the University of Cambridge, UK. The program will initiate discussions among a wide range of researchers about the fundamental physics and mathematical modeling of biological systems, with a focus on active, far-from-equilibrium properties and the consequences of these for adaptive control. The interdisciplinary nature of the research can impact a variety of fields from materials science and engineering, physics, applied mathematics, biology to medicine. About one third of the more than 100 participants will be from US institutions, including 10-15 junior researchers. The program includes four week-long workshops, consisting of typically 24 invited and 15-20 contributed talks that emphasize representation of younger scientists and underrepresented groups.